EM and Pressure Oceanographic Instrumentation Upgrading and Development

Scripps Institution of Oceanography will upgrade a suite of bottom mounted electromagnetic field sensors and bottom pressure gauges developed by Jean Filloux and his group. These prototype instruments have been used in both oceanographic and geophysical investigations. Their modernization will enhance the instruments' reliability for future research applications. The upgrades will incorporate advances in electronics and materials which have occurred over the past years. Modern data storage capabilities will be added and acoustic releases will be mounted allowing long- term deployments for up to 24 months. Incorporation of new ceramic materials and electronics will also increase the reliability and stability of the sensors. The upgrades acknowledge the importance of EM measurements as a component of future ocean science investigations including the Global Geoscience initiatives.